CISE Research Instrumentation for AI Planning Research

CDA 9529444 Nau, Dana Hendler, James University of Maryland at College Park CISE Research Instrumentation for AI Planning Research The Department of Computer Science and the Institute for Systems Research at the University of Maryland will purchase computing machining equipment, including a small multipurpose machine tool, a pentium-based personal computer for solid modeling and input to the tool, and a large disk drive for keeping large case-based planning libraries, all of which will be dedicated to support artificial intelligence research in the area of computer and information science and engineering. The equipment will be used for several research projects, including in particular: *AI-based planning for manufacturing, *High Performance Support for Large Knowledge Bases, *Combination of generative and case-based reuse techniques in AI planning, and *Low-cost robotics. In addition, a CAD tool will be donated by Bentley Systems Inc. to facilitate experimentation with the AI planning techniques in the manufacturing domain.